Collaborative Research on Flexible Modeling and Analysis for Information Aggregation

In many problems, information is available from many different sources. Aggregating these diverse bits of information is important to good decision-making but also leads to special statistical problems in developing models to characterize the information. Prior research in this areas has relied primarily on the use of historical data as a basis for modelling the information sources. The proposed research develops a Bayesian framework that a decision maker can use to encode his subjective knowledge about the information sources in order to aggregate their information. This framework features a highly flexible environment for modelling the probabilistic nature and interrelationships of the information sources and requires straightforward and intuitive subjective judgements using proven decision-analytic assessment techniques. Analysis of the assessments to produce a posterior distribution for the event of interest is accomplished through analytical, numerical or Monte Carlo techniques.